Marine Biotech. Fellowship: Molecular Characterization of Cytochrome P450(s) in a Marine Fish: Applications to Environmental and Ecological Questions

The objectives of this project are to clone and characterize induced cytochrome P450 cDNA(s) from hepatic tissue of the fish, Chaetodon capistratus, and develop quantitative assays for cytochrome P450 mRNA and enzyme levels. Induction of cytochrome P450 gene expression will be characterized in C. capistratus using two model substrates: 1) beta-naphthoflavone (beta-NF), a 3- methylcholanthrene type xenobiotic and 2) curcuhydroquinone, and ichthyodeterrent allelochemical from the gorgonian coral, Pseudopterogorgia rigida. Characterization utilizing the first substrate will address the potential use of C. capistratus as an environmental biomonitor in coral reef environments. Characterization utilizing the second substrate will address the effect of an ichthyodeterrent allelochemical on P450 induction. Taken together, the evolutionary relationship between detoxification of these two classes of foreign compounds can be addressed. Furthermore, the potentially confounding effect of dietary allelochemicals on xenobiotically induced P450 will be investigated. Field sampling sites with and without recent polycyclic aromatic hydrocarbon (PAH) exposure will then test the feasibility of using C. capistratus cytochrome induction as a biomonitor of environmental contamination. Coral reefs are ecologically and economically important environments which are increasingly being subjected to detrimental anthropogenic influences, but effective monitoring mechanisms are lacking. Chronic, sublethal effects of pollution due to contamination by PAH and synthetic organic chemicals, though not readily apparent, can become lethal. The ability to detect low levels of contaminants may be crucial for preventing long-term damage. There are presently no molecular studies which have characterized a PAH-induced P450 in a tropical marine organism. Characterization of C. capistratus P450 will not only add to our knowledge of the diversity of this biologically important class of enzymes, but more importantly will provide a molecular probe with which to assess questions of ecological as well as environmental significance with great sensitivity. In particular, is cytochrome P450 responsible for the ability of C. capistratus to feed on gorgonian corals which are otherwise defended by ichthyodeterrent allelochemicals. This finding has potentially broad significance for understanding patterns of predation and herbivory in the marine environment. Molecular characterization of C. capistratus P450 and the development of molecular probes to test the effects of chemicals at sublethal levels thus has applicability to important environmental and ecological questions.